MPWG: Teaching Traineeships for Undergraduate Women

Auchincloss 9553445 Teaching Traineeships in Physics for Undergraduate Women is a two-year pilot project in the Department of Physics and Astronomy, in cooperation with the Women in Science and Engineering Project. Women students, who are to be become co-instructors in the physics laboratory courses taught by graduate teaching assistants, are to be recruited from the top-scoring sophomores and juniors (not just physics majors) who have taken the introductory laboratory courses. The undergraduate trainees will participate in a special two-week training session during the summer, as well as in training sessions throughout the academic year. Each trainee will be paired with a graduate teaching assistant (TA), and assigned to a specific laboratory section. Most instructional duties (except grading) will be shared equally by the lead TA and the trainee (e.g., the graduate and undergraduate TAs will alternate in presenting the 15-minute introductions to the laboratory exercises). Thus, the trainees can acquire valuable experience as well as have visible classroom responsibility. The proposed traineeship effort aims to improve the long-term retention of college women in science, fulfilling the immediate need of recognizing achievement and encouraging further commitment to science of talented undergraduate women science majors at an early stage. By design, this project also increases the number of women instructors in physics laboratory courses, creating a more gender-equitable environment than now exists for all students in introductory physics, and providing female role models for first-year women students. The project should positively impact the instruction in physics labs, by increasing not only the number of instructors in each laboratory section, but also the number of competent instructors, through the training and supervision which will be provided through the project. Thus, the project expects to have a positive impact upon the quality of college science education, as well as upon the trainees. The latter are to be recognized for their prior academic achievement, and through participation in a proven teaching program, increase their skills and leadership abilities. The teaching process involves them as significant members of the Department and strengthens their preparation for graduate work in science or science education. Additionally, these women trainees serve as peer-mentors and role models to the undergraduate women and men in their laboratory sections, conveying through their presence the message that "science is for everyone." It is anticipated that after the pilot effort is completed, the traineeship program will be institutionalized and supported with Physics Department funds. The demonstrated competence of the trainees and the increased satisfaction ratings from students in the labs should provide an incentive for other departments with large enrollments in laboratory courses to create similar traineeship opportunities for undergraduate women. ***